Analysis of Variable Fault Displacements at the Mid-Atlantic Ridge for Changes in Yield Strength and Strain Budget

9501964 Shaw This program will investigate variations in lithospheric strength along the Mid-Atlantic Ridge. The study will combine an analysis of multibeam bathymetric data to extract lengths and vertical offsets of normal faults with a modeling portion to arrive at a thermal picture of the lithosphere and thus an estimate of strength, given an inferred composition and rheology. ***